Analytical and Experimental Studies of the Seismic Response of Building Contents/Support Systems

This project presents an analytical and experimental study of the problems associated with seismic damage mitigation measures for museum art objects. The proposed research will address the problem of developing design guidelines to handle the following situations relative to the performance of art objects: 1. Sliding of rigid systems 2. Rocking of small rigid systems 3. Multiple support response In view of the difficult analytical aspects of the underlying problems, newly acquired USC seismic shaking equipment will be used to study the enumerated problems and develop design charts for use by museum curators, conservators, or individuals caring for art objects, in establishing sound seismic damage mitigation measures for art objects under earthquake inputs.